A Modern Curriculum in Engineering Design Graphics

This project is concerned with the design, development and evaluation of a new curriculum for Engineering Design Graphics that reconciles the current transition from the 2-D design medium (wooden or electronic drafting board) to the new and near-future 3-D design medium (solid modeling system). The project is founded on the premise that 3-D solid modeling systems, using new computer graphics technologies, are becoming dominant engineering design tools for the 1990's, and that new knowledge and visualization skills will be required by future engineers to become successful designers. The equipment and facilities needed for this project are provided by the grantee.